U.S. Germany Cooperative Research: Numerical Correlation of Late-Quaternary Sediments

0003790
Davis
This award supports John Davis and a graduate student from the University of Kansas in a collaboration with Jan Harff of the Institute for Baltic Research in Warnemunde, Germany. The research funded by this award will focus on variations in the properties of sediments from the Baltic Sea floor as they reflect variations in climate since the beginning of the last major glacial retreat, which occurred 13,000 years ago. Recent work has demonstrated the utility of applying statistical zonation and correlation techniques to physical properties of sediment cores from the Baltic floor. The work on this proposal, which will extend the analysis of core samples through the Kattegut and Skaggerak and into the North Sea, will elucidate connections between Baltic Sea sediment properties and other paleoclimate indicators. This joint collaborative research effort also presents junior researchers with the opportunity to work internationally, and the work done on this proposal will help institutionalize the relationship between the German and U.S. research groups.